Mathematical Sciences Computing Research Environments

KARNIADAKIS DMS-9628601 The present proposal is a request by the Division of Applied Mathematics of Brown University to NSF for the acquisition of equipment in order to improve the network infrastructure and modernize the general-use workstation laboratory at the Center for Fluid Mechanics Turbulence and Computation. This upgrade of our current facilities is necessary for the optimum use of local computing resources as well as those available at the national NSF-sponsored centers. The acquisitions will particularly enhance the use of the parallel computer (IBM SP2/24-nodes) installed last year at the Center. The Center provides computational support for the research in several mathematical sciences projects. These include: parallel algorithms on spectral and spectral element methods, high-resolution simulations of supersonic combustion, modeling and simulations of dispersed two-phase flows, low-dimensional dynamical systems modeling, and mathematicals models for vision and image processing. The Center s facilities will also be used to support activities of the new Program in Scientific Computing at Brown University as well as by faculty from Clark Atlanta University to support a collaboration on computational mathematics sponsored by the Leadership Alliance Program.